Structure, Diffusion and Rheology of Colloidal Dispersions

This award supports summer research by undergraduates at the Whitney Laboratory of the University of Florida. Students pursue research related to ongoing faculty research programs that study the physiology, anatomy, biochemistry and molecular biology of various marine invertebrates and fishes. Students also participate in weekly seminars and informal research presentations, as well as discussions of scientific ethics and lectures and field trips that expose students to the ecology of nearby marine ecosystems.